Adaptive ALE Finite Elements for Material Forming Simulations

Arbitrary Lagrangian-Eulerian (ALE) finite elements method for numerical computation have great promise in applications to material forming simulations, and related areas, such as wear and penetration mechanics due to its ability to analyze fully nonlinear problems. The major advantages will be accuracy, efficiency, and reliability in nonlinear analysis. This research project will provide the bases for the implementation of ALE finite element modeling to material processing. Three aspects of ALE will be studied: the development of ALE mesh partitions within which mesh deployment is dynamically adjusted in subdomains; the development of simple, efficient, and accurate ALE stress and frictional traction update procedures; and the development of rapidly convergent, computationally-efficient linearized ALE equations of motion in adaptive ALE mesh in material forming simulation.